Second Cornell Conference on Mathematical Finance

Mathematical Finance not only has relevance to asset pricing, credit risk,
and the term structure of interest rates (for example), but also presents
to mathematicians a new way of looking at research in probability, since
the types of questions that need to be answered are no longer motivated by
physics or subjects such as electrical engineering. Building on the
foundation of the First Cornell Seminar in Finance, the Second will again
bring together leading researchers from the Northeast and selected points
beyond for an exchange of ideas in seminar format. The basic themes will
be asset pricing and hedging, viscosity solution based control theory,
credit risk, interest rates, and numerical methods and data analysis using
modern statistical techniques.

Fundamental research in finance has helped to change the world of commerce
during the last 30 years, and has arguably contributed to the explosive
growth in wealth. The key idea is the transfer of risk: modern financial
tools allow one party to sell an aspect of a risky exposure to another
party, and to do so at a fair price. Often a way for the buyer of the risk
to hedge against the risk (a hedging strategy) can also be provided in
terms of mathematical formulae. A problem is, however, that while the
models have led to huge advances, they are still often crude approximations
of reality, and also most of the advances have come from the creation of
financial derivatives in markets such as the stock market. Of current
interest is the development of analogous tools one could use in other
markets, such as credit risk. For example, two companies issuing similar
bonds may command different prices due to the markets' differing
assessments of their risk of not repaying the bonds. How to model this
risk mathematically is as yet poorly understood, and the subject of intense
research efforts. This conference will bring together leading scholars,
young researchers, and advanced graduate students for an intellectual
exchange involving both formal presentations of research advances and also
private discussions of special research topics. It will be held at Cornell
University, one of the nation's leading institutions of higher learning.